Hawaii EPSCoR Planning Proposal

The University of Hawai'i at Hilo, on behalf of the state of Hawai'i, has requested NSF
support for a planning grant designed to help Hawai'i set priorities for the improvement
of the state's basic science and engineering research infrastructure. The project's
objective is to design a statewide science and technology (S &T) plan that will stimulate
economic opportunities and wealth building capacity. The planning process will examine
activities that have the potential to: (1) affect greater participation in academic research
and development (R&D) and (2) significantly improve the status of science and
technology (S&T) education and workforce development. The planning process will
analyze the state's current S&T infrastructure and inventory current research personnel
and facilities. This analysis includes identifying: S&T areas of current research
excellence as well as areas with the potential for future national R&D competitiveness.
The planning process will result in a coordinated state-wide effort to improve academic
R&D capabilities in targeted disciplines, enhance training and education for students in
science and engineering, and increase efforts to promote transfer of technology from the
state's universities to Hawai'i's private and public sectors.